Bureau of Transportation Statistics (BTS) Support of the National Center for Atmospheric Research Activities

The Bureau of Transportation Statistics is providing support to the National Center for Atmospheric Research activities involving roadway flood severity.